Climate Change and a Global City: An Assessment of the Metropolitan East Coast Region

This project proposes to derive an assessment of the potential climate change impacts on a major metropolitan region (New York City and environs). The study will comprise one regional component of the ongoing U.S. National Assessment on the potential consequences of climate variability and change. The proposal includes a number of focused activities including human health, coastal inundation, water facilities, infrastructure, and community interaction and outreach. Each element will assess the potential impacts through analysis of current conditions and scenario predictions. The result will identify areas for decision and additional research. A number of databases will be developed to provide information for future decisions affecting the metropolitan area.